Purchase of an UV-IR Picosecond Laser Facility

Lasers emit a narrow beam of coherent, powerful and nearly monochromatic electromagntic radiation. This intense beam of coherent visible and infrared light excites the atoms of the optical resonator to a higher energy level and the resonator forces the excited atoms to radiate in phase. Lasers are useful in optics, communication, and engineering. This award from the Chemistry Shared Instrumentation Program will help the Department of Chemistry at Princeton University purchase laser equipment. This equipment will be used in the following research activities: a) High Power Pulse Shaping for Laser Selective Chemistry b) Photodissociation and Molecular Relaxation in Molecular Beams of Clusters c) Time-dependent Study of Intramolecular Energy Flows d) Structural and Dynamics in Proteins and Metalloporphyrins e) Structure and Dynamics of Biomimetic Multiheme Assemblies f) Fast Reactions at Electrodes g) Motional Dynamics in DNA